Active & Semiactive Control of Vibrations Produced by Arbitrary Disturbances

This project focuses on the design of a controller for active suppression of vibration produced by unknown disturbing forces which cannot be measured directly. The design procedure comprises two stages including the design of an observer to reconstruct the system state and the disturbance based on the system outputs, and the design of a controller which cancels or minimizes the effect of the disturbance. The proposed approach for the design of the observer does not assume any a priori information about the disturbance such as statistical data or waveforms of the disturbance. The idea here is to design an observer which includes an additional term to account for the disturbance. The controller itself will be designed to cancel external force entirely, provided the disturbing force can be reconstructed by the observer. This research is intended for application to vehicle active suspension systems, and for active vibration absorbers for manufacturing machines such as forging hammers, press machines, etc.